Light Microscopy Instrumentation For Independent Student Research

9352296 Altschuler An inverted microscope with microinjection capabilities enhances the quality of independent student research projects. Seniors and lower division students can now carry out tissue culture work, observe living specimens and record their observations for presentation at scientific meetings. ***